NSF/EPA TSE: Metabolic Engineering of Methylotrophic Bacteria for Conversion of Methanol to Higher Value-Added Products

The goal of this project is to develop an optimized strain for
converting methanol into higher value added products by directed
metabolic engineering of a methylotrophic bacterium,
Methylobacterium extorquens AM1. The hypothesis to be tested is
that energy metabolism can be optimized and carbon flux can be
directed to specific metabolic branches by manipulating
formaldehyde production and consuption pathways. This award is
made by NSF as part of the joint NSF/EPA Program on Technologies
for a Sustainable Environment.